Optimization of Filtered Beams for Neutron Capture Theory

In this effort, research will be conducted on a beam of neutrons with energies in the range from a few eV to a few keV with a minimal number of gamma rays. Several different filters have been developed to produce beams of keV neutrons, but these have not beenoptimized. The objectives of this program are to evaluate and optimize filters. Three subtasks are identified: experimental measurements are made to compare a number of filters, neutronics code analysis is made to optimize the delivery of 1 eV to 30 keV, and code analysis is done to evaluate partial coupling of the filter to the neutron source. Development of a high current, clean,intermediate energy beam is a nuclear engineering project with applications to a number of subdisciplines such as dosimetry, medical applications, material damage studies, and nondestructive evaluation development.